CSR: Medium: Salt: combining ACID and BASE in a distributed database

Most large web applications are built using distributed databases.
This project tackles a fundamental question: as these applications
grow, leading to more query and update processing, can we scale
application performance without requiring a massive reprogramming
effort. The premise of this project is that today's two leading database
paradigms -- ACID and BASE -- are profoundly unsatisfying. ACID implementations
provide strong properties that make it easy to develop an application
and reason about its correctness, but they struggle to keep up in
performance and availability as the volume of accesses to the database
grows; and while the BASE programming paradigm can meet these needs,
the price is to give up all ACID guarantees, drastically increasing
both development time and the possibility of introducing bugs. This
project aims to develop the new theoretical framework necessary to
overcome this impasse and simultaneously support consistency, availability,
and scalability; and to build a database prototype that implements the
mechanisms necessary to support this new framework.

The project introduces a new programming framework that combines the ease
of ACID transactions with the performance of a BASE implementation
by introducing a new abstraction, BASE transactions. The
syntax and semantics of BASE transactions are driven by two
goals. First, BASE transactions should achieve high performance and
availability by loosening the overly-tight coupling between atomicity
and isolation of the ACID paradigm, while nonetheless retaining its
ability to express and enforce the atomicity requirements motivated by
a given applications semantics. Second, it should be possible to
surgically transform performance-critical ACID transactions into BASE
transactions without affecting either the correctness or the
performance of the unmodified ACID transactions.

To demonstrate this new programing framework, this project will develop
Salt, a database that combines the desirable qualities of both ACID and BASE
paradigms. The project will apply this work to Health Care IT through a partnership
with a 501(c)(3) entity in central Texas charged with providing health information
technology solutions to local health care infrastructure.